QuarkNet

QuarkNet is a national program that partners high school science teachers and students with particle physicists working in experiments at the scientific frontier. These experiments are searching for answers to fundamental questions about the origin of mass, the dimensionality of spacetime and the nature of symmetries that govern physical processes. Among the experimental projects at the energy frontier with which QuarkNet is affiliated is the Large Hadron Collider, which is poised at the horizon of discovery. The LHC will come on line during the 5-years of this program. QuarkNet is led by a group of teachers, educators and physicists with many years of experience in professional development workshops and institutes, materials development and teacher research programs. The project consists of 52 centers at universities and research labs in 25 states and Puerto Rico.

It is proposed that Quarknet be funded as a partnership among the ESIE program of EHR; the Office of Multidisciplinary Activities and the Elementary Particle Physics Program (Division of Physics), both within MPS; as well as the Division of High Energy Physics at DOE.